NSF Student Travel Grant for 2018 Forum on Infrastructural Resilience to Low-Level Seismicity in Oklahoma

This award provides travel support to students from across the country to attend the 2018 Forum on Infrastructural Resilience to Low-level Seismicity, to be held in Stillwater, Oklahoma. Undergraduate and graduate students in data science, geoscience and engineering will be able to take an active role in understanding the interdisciplinary problems and potential solutions.

The forum includes an opportunity for hands-on interaction with the latest data and sensing capabilities. Dr. Priyank Jaiswal recently received a Cyberinfrastructure for Sustained Innovation (CSSI) award (#1835371): Oklahoma State University and UCSD are collaborating on the comparative characteristics of earthquakes induced by wastewater injection. The project demonstrates an approach using multi-sensor geoscience and engineering datasets recorded on structures on the Oklahoma State University campus and in the field near the location of the September 2016 Pawnee earthquake.